Collaborative Research: GOALI: Synergistic Improvement of Process Safety and Product Quality Using Process Databases

1066461
Soroush

Intellectual Merit

The chemical and petroleum industries and regulators have been improving the safety of processing plants, especially with every new accident such as those in the Gulf of Mexico, Texas City, Flixborough, Seveso, and Bhopal. In addition, the EPA, the American Chem. Council, Sandia Natl. Lab., the U.S. Coast Guard, and the Dept. of Homeland Security, have added security standards to existing safety regulations [OSHA Process Safety Management (PSM), EPA Risk Management Plan (RMP)] that apply to the chemical and petroleum industries. In spite of these efforts, the industries have devoted less attention to accurate risk and vulnerability assessments compared to the aircraft, military, and nuclear industries. The potential for loss of human lives and economic losses that may jeopardize companies' existences, in addition to social and legal complications, have increased the desire to have inherent safety and security, and dynamic risk assessment and reliability as vital requirements in the planning, development, design, control, and operations of processing plants.

The PIs have developed a mathematical model to estimate the failure probabilities of various critical accident scenarios associated with a chemical process given abnormal events and accident precursor data, using copulas and Bayesian analysis. They extended this model to utilize large distributed control system (DCS) and emergency shutdown (ESD) system databases, involving alarm data associated with an industrial fluid-catalytic-cracking unit. In so doing, they developed new methods for estimating performance indicators, carrying out alarm system analysis, and estimating leading indicators of shut-downs (trips) and accidents - to assist process operators and management in recognizing near-misses and making adjustments to prevent the occurrence of dangerous and costly incidents.

In this research, they will introduce and study new methods for dynamic risk assessment of chemical plants and test their findings in collaboration with Air Liquide Research and Development in Newark, DE. The methods will be tested using DCS and ESD system databases during steady operation and startup. Initially, they will work exclusively with safety data. Gradually, they will utilize product-quality data to identify near-misses and prevent accidents more effectively; that is, to achieve improved process safety and product quality in a synergistic way. Among the research challenges that will be investigated are: (1) efficiently handling large and complex event trees associated with alarm databases, (2) systematically conducting near-miss utilization and management to develop leading indicators, (3) introducing and testing a new Bayesian analysis method using copulas, (4) developing a method of identification of special causes from available process information at each time instant, (5) developing a method of predicting possible near-future accidents from available process information at each time instant, (6) efficiently handling the alarms associated with highly correlated variables, and (7) introducing a computationally-efficient method for estimating profit losses associated with near-misses. Prototype software will be developed to test the new techniques and to perform company-wide dynamic risk analysis. The methods will be implemented and tested on several industrially important processes through simulations and in real-time at Air Liquide.
Broader Impacts

Potential impacts of the project are societal, economical, technological and educational, among others. The new methods will permit more thorough risk analyses utilizing large dynamic databases providing safer processing plants that more consistently produce on-specification products, thus increasing profits. The methods and software will be available to the process industries and in design and control courses at universities. These new risk-assessment techniques will lead to more quantitative safety coverage in future editions of the PI's design textbook. Although the project focuses on near-misses and failure probabilities in processing plants, these techniques can be easily utilized in other industries/organizations, such as the aviation, healthcare and nuclear industries. The work is multidisciplinary in nature involving chemical engineers, risk analysts, and statisticians. Several students will be trained in this project.